Interaction of Dynamics and Thermodynamics along the Boundaries of the North Pacific Subtropical Gyre

9818920
Thompson
The project is for a study of ocean dynamics and thermodynamics along the boundaries of the subtropical gyre in the North Pacific. The observed variability in surface height and temperature will be compared with numerical runs using Princeton isopycnal model. Along the northern boundary, the hypothesis is that this is where the mode waters are formed, which can carry information from atmospheric forcing into the ocean interior. An isopycnal model with an embedded bulk-mixed-layer will be used to investigate where in the water column heat content changes and whether these changes could affect SST at a later time. At the southern boundary of the gyre, the numerical model will be used to investigate whether this response is due to the interaction of the shoaling thermocline with buoyancy forcing in the mixed layer. The objective is to improve both model performance and interpretation of surface observations. After confirming model accuracy with observations, the model will be used to extend the analysis to longer time scales than are available from satellite measurements.